ROW: Mechanisms and Kinetics of the Oxidation of Sulfonic Acids by Free Radicals

Sulfur compounds in the atmosphere are known to contribute to acid precipitation. More recently, the chemical sulfur cycle has been suggested to influence global climate by promoting cloud or aerosol formation. Sulfonic acids participate in the atmospheric sulfur cycle, but the fates of these acids and their role in the eventual formation of sulfate is poorly understood. This project will investigate the aqueous reactions of methanesulfonate and hydroxymethanesulfonate with hydroxyl radical in order to assess the importance of free radical oxidant interactions in governing the fate of the sulfonates in atmospheric droplets. Pulse radiolysis and relative rate methods will be used to obtain kinetic data. Mechanistic details will be probed by optical and esr spectral evidence of transient intermediates. The findings should assist in clarifying the role of organosulfur compounds in the global sulfur cycles. It is expected that a clearer distinction between anthropogenic and natural sources of droplet acidity will emerge from his work.